CSR-PDOS: Exploring and Developing Improved Erasure Codes for Storage Systems

Storage systems are exploding in size, complexity and popularity, and
as they grow, they expose themselves to a variety of failures. As
such, the software that supports these systems must be able to
tolerate a growing number of failures. Erasure coding is a technique
that allows storage nodes to be enriched with extra coding
information so that if one or more nodes fail, the original data may
be recovered from the survivors. While erasure codes have existed
for decades, there is a considerable gap in understanding
constructions, performance and properties of codes that tolerate
multiple failures. This project's mission is explore, design,
evaluate and disseminate erasure codes for multiple failures that
significantly improve the performance and failure coverage of current
codes. The research component is centered around unifying disparate
techniques from classical coding theory, disk array technology, and
asymptotic graph theory.

This work will impact all applications where multiple storage nodes
are used in tandem, and the risk of one or more nodes failing is
significant. New, efficient codes will be developed and evaluated
with respect to the best currently known codes. Additionally, the
implementations of these codes will be disseminated to the community
of systems programmers that need them, and tutorial material will be
developed so that the codes may have wide impact. This is a serious
issue, as most current codes are presented in a theoretcially formal
way that puts them beyond the reach of the programmers who need to
implement them. Finally, erasure codes will be used as the basis for
motivational programs on math and science at K-12 schools in East
Tennessee.